A Novel Signal Peptide-Based Protein Translocation System in the Thylakoids of Chloroplasts

9419287 Cline "Signal peptide" targeting sequences mediate protein translocation across several evolutionarily related membranes, ranging from the endoplasmic reticulum of eukaryotes to the cell membrane of bacteria. This proposal is concerned with the characterization of the novel protein transport machinery found in chloroplast thylakoids which is unique in that translocation is driven only by a pH gradient. Because proteins targeted to the thylakoid lumen are synthesized outside the chloroplast in the cytosol, there are two membrane systems which much be passed, the outer double membrane system and the the thylakoid membrane itself. The signal which targets the proteins past the outer double membrane system is cleaved from the protein, revealing the second part of the signal peptide which then interacts with the thylakoid protein transport machinery, or translocase. The objectives of the proposal are to purify the translocase, identify the pore complex associated with the translocase, assess the use of this pore by proteins which can use other translocases not driven solely by a pH gradient and vice versa, determine the location of the machinery on the thylakoid membrane system, and explore the possibility that such translocases might occur in E. coli. %%% Contemporary signal peptide-based transport systems have evolved from an archetypal mechanism. Yet each system has unique methods for targeting, initial insertion, and chain translocation, which are reflected by specific components and translocation requirements. In this context, it is expected that one thylakoid system, with its singular dependence on a pH gradient, has evolved a simpler, possibly more efficient mechanism for translocation. Results of this study should provide insight into the mechanism of pH gradient-driven translocation mechanisms. It will also provide tools to explore the relationship between envelope and thylakoids during the early developmental stages of thylakoid forma tion. The work proposed will have impact on our knowledge of the mechnanism and evolution of protein translocation across membranes in general. ***